Mathematical Sciences: Subsystems of Second-Order Arithmetic

A central question in the foundations of mathematics is: Which set existence axioms are needed in order to prove specific theorems of ordinary mathematics? Here "ordinary mathematics" refers to the parts of mathematics which are not overtly set theoretical. For instance "ordinary mathematics" includes subjects such as geometry, differential equations, real and complex analysis, countable algebra, countable combinatorics, and the topology of complete separable metric spaces. On the other hand, "ordinary mathematics" does not include topics such as general topology and uncountable cardinal arithmetic. It has been found that the language of second order arithmetic is an appropriate context for the study of the above question. (This is because "ordinary mathematics" is to a large extent identifiable with countable and separable mathematics.) Moreover, a great many key theorems of ordinary mathematics, when formalized as sentences of second order arithmetic, turn out to be equivalent to the set existence axioms which are needed to prove them. (The equivalent is proved over a weak base theory.) Surprisingly, the number of inequivalent set existence axioms which arise in this way is rather small. This is the theme of Reverse Mathematics, which has been developed by Simpson and others and will be further developed under the current project.